From Battlefield to Classroom: Designing Pathways to Engineering for American GIs

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This engineering education award to the Syracuse University will develop an innovative model of attracting veterans to engineering study, predicting how many will be likely to study engineering and customizing the degree program to their needs. The results will be presented on the web, at technical conferences and published in professional journals, and the tools developed will be available through the projects website. The project is expected to assist veterans' transition to civilian life and to enhance the number of students who complete engineering degrees and are ready to fill engineering jobs or start new high tech businesses.